Epoch GPS Geodesy in the North Andes

This project represents an opportunity for US scientists to again cooperate with scientists from Australia, Canada, Colombia, Costa Rica, Ecuador, New Zealand, Norway, Panama, Sweden, Switzerland, Venezuela, and West Germany in the second epoch measurements in a global satellite tracking network and the first major GPS network in Central and South American (CASA). Funding for the measurements will again be from scientific agencies in all 13 countries including contributions for the Jet Propulsion Laboratory, German Geodetic Research Institute, Munich, the Colombian Geological Survey and Geographic Institute. Preliminary solutions for the 1988 North Andean data are consistent and repeatable at the levels predicted from convariance analyses. Sub-centimeter level precision has been achieved on baselines up to 300 km in length. Results are expected to be improved further with carrier phase ambiguity resolution and multi-day orbit determination. The North Andean sites have been surveyed into existing first-order geodetic networks. Precise satellite orbits will be calculated at the Center for Space Research in Austin.